Mini-Symposium on Contemporary Algebra and Algebraic Geometry, Texas Tech University, Lubbock, TX; November 14-16, 2002

ABSTRACT

The investigator is organizing the 2002 Red Raider mini-symposium at Texas
Tech University on ``Contemporary Algebra and Algebraic Geometry". The
mini-symposium will consist of five distinguished lectures on current
research topics on group theory and its applications, algebraic structures
and algebraic geometry. The distinguished lectures will be delivered by
William Fulton, Robert Griess, James Lepowsky, Gregory Margulis and Efim
Zelmanov.

The purpose of the mini-symposium series is to put together a program in
which some of the most oustanding scholars in selected areas of
Mathematics and Statistics will deliver lectures on timely research topics
and methodology, with the objective of providing members of the
mathematical community, especially early career mathematicians and
graduate students, an opportunity to broaden their repertoire of research
tools and to learn about new research venues. The event also provides a
forum for members of the mathematical community to interact with
outstanding scholars in a relaxed atmosphere. The above list of speakers
includes two Field Medalists (the Field Medal is the highest recognition
bestowed in Mathematics) and three members of the National Academy of
Sciences.